GOALI: Pulsed Terahertz Spectroscopy of Colossal Magnetoresistance Materials

w:\awards\awards96\num.doc 9712776 Drew This experimental GOALI research project, supported in part by the Office of Multidisciplinary Affairs (OMA) of the MPS Directorate, is on the infrared and microwave magneto-optical properties of Colossal Magnetoresistance (CMR) materials, with emphasis on manganese perovskites, in the form of thin films grown on far-infrared transparent substrates. The films will be characterized using dc transport and magnetic susceptibility measurements, and will then be studied using THz spectroscopy. The results will be used to help illuminate the mechanisms involved in CMR in the manganese perovskites and address questions about the application of the materials as microwave circuit elements, bolometric detectors, and magnetic sensors. This research project is interdisciplinary in nature and will involve collaboration between a leading academic laboratory and a government laboratory. %%% This experimental GOALI research project, supported in part by the Office of Multidisciplinary Affairs (OMA) of the MPS Directorate makes use of sophisticated optical measurements to clarify the interaction of magnetic fields with "Colossal Magnetoresistance Materials" (CMR) of the manganese perovskite family. These CMR materials have extremely large sensitivity in their electrical resistance to ambient magnetic field, and are therefore of great interest for their potential application in magnetic field sensing elements as are used in magnetic disk drives, as well as for their scientific interest. Results from this research may include unusual new effects or structures which may find application in technology. This research project is interdisciplinary in nature and will involve collaboration between a leading academic laboratory and a government laboratory. ***